Visible Human Project Atlas of the Head and Neck, and Visible Human Project Computer Imaging Tools

This action is part of continuing cooperation between the NSF/CISE and the NLM/NIH to jointly fund activities of common interest. The award will be directed to NLM managed competitions entitled, "Visible Human Project Atlas of the Head and Neck, and Visible Human Project Computer Imaging Tools", announced in RFPs NLM99-103DJH and NLM99-105/SLC. The goals of the Visible Human Project Atlas of the Head and Neck solicitation is develop an educational, public domain-accessible web site, which in addition to offering new scholarly opportunities, may serve as a prototype for new educational applications based on the Visible Human Project data sets. The goals of the Visible Human Project Image Processing Tools solicitation is to develop an application programmer interface (API) and initial implementation of a Segmentation and Registration Toolkit (SRT).